Enzymatically Amplified SPRI Biosensing of DNA, RNA and Protein Microarrays

The Analytical and Surface Chemistry (ASC) program of the Division of Chemistry will support the research program of Prof. Robert Corn of the University of California at Irvine. Prof. Corn's research program focuses on the development of ultra sensitive biosensor micro arrays based on surface plasmon resonance imaging (SPRI) microscopy and spectroscopy. Surface biomolecular interactions and surface enzyme reactions will be utilized to either enhance the specificity or amplify the sensitivity of the biosensor micro arrays. The SPRI biosensor arrays will target DNA and RNA oligonucleotides and used to detect specific sequences in unlabelled DNA or messenger RNA samples and single base mismatches. The SPRI biosensor arrays will also be used for studying RNA-protein interactions. The research of Prof. Corn will integrate measurement science with problems that are currently at the frontier of biological research and will serve as an ideal platform for inter-disciplinary education. It will provide an excellent educational opportunity for trainees desiring work at the interface of chemistry and biology.

The SPRI biosensor micro arrays developed in Prof. Corn's laboratory will result in significantly improved genomic analysis. The biosensor arrays could be used in various biomedical applications including studying gene expression patterns, diagnostic screening of genetic abnormalities and pathogen identification and detection.